Development of a Cell Culture Facility

This tissue culture facility, including a CO2 incubator, biological safety cabinets, and inverted microscopes, supports upper-level courses and provides exciting new opportunities for independent undergraduate research.